The Fuzzy Point Syntheses of Mechanisms

This research project involves the integration of fuzzy set theory with the selective precision synthesis method of optimum mechanism design. This effort will enable mechanism designers to effectively solve problems that are posed with fuzzy information. Problems dealing with planar and spatial mechanisms with specified fuzzy motion information will be investigated in this project. Problems will be formulated as nonlinear optimization problems which will be solved using a modified form of the generalized reduced gradient method of optimization. The modification to this optimization method involves its ability to handle fuzzy numbers. This work is important because it will advance the knowledge base in optimum mechanism design in the presence of imprecise data and may open the door for additional engineering applications for the fuzzy set theory.